IGERT: Cognitive, Computational, and Systems Neuroscience

This Integrative Graduate Education and Research Training (IGERT) award supports the establishment of an interdisciplinary graduate training program in Cognitive, Computational, and Systems Neuroscience at Washington University in Saint Louis. Understanding how the brain works under normal circumstances and how it fails are among the most important problems in science. The purpose of this program is to train a new generation of systems-level neuroscientists who will combine experimental and computational approaches from the fields of psychology, neurobiology, and engineering to study brain function in unique ways. Students will participate in a five-course core curriculum that provides a broad base of knowledge in each of the core disciplines, and culminates in a pair of highly integrative and interactive courses that emphasize critical thinking and analysis skills, as well as practical skills for developing interdisciplinary research projects. This program also includes workshops aimed at developing the personal and professional skills that students need to become successful independent investigators and educators, as well as outreach programs aimed at communicating the goals and promise of integrative neuroscience to the general public. This training program will be tightly coupled to a new research focus involving neuro-imaging in nonhuman primates. By building upon existing strengths at Washington University, this research and training initiative will provide critical new insights into how the non-invasive measurements of brain function that are available in humans (e.g. from functional MRI) are related to the underlying activity patterns in neuronal circuits of the brain. IGERT is an NSF-wide program intended to meet the challenges of educating U.S. Ph.D. scientists and engineers with the interdisciplinary background, deep knowledge in a chosen discipline, and the technical, professional, and personal skills needed for the career demands of the future. The program is intended to catalyze a cultural change in graduate education by establishing innovative new models for graduate education and training in a fertile environment for collaborative research that transcends traditional disciplinary boundaries.